Special Session on Mathematical Relativity at CADS 4

Abstract

Award: DMS-0911292
Principal Investigator: Gilbert Weinstein, Gregory Galloway

This award provides partial support for US participants in a
session on mathematical relativity within an international
conference entitled Complex Analysis and Dynamical Systems IV
(CADS IV) to be held in Nahariya, Israel during May 2009. This
is the first time that the CADS conferences have included a
session this topic.

Einstein's equations have received renewed attention in recent
years, in part due to connections between them and other
geometric partial differential equations, and in part due to the
emergence of powerful new techniques for such equations. The
special session aims to gather specialists and junior researchers
in mathematical relativity and geometric partial differential
equations to discuss the wealth of problems and recent results in
these areas, in order to promote new collaborations and further
progress. The participation of graduate students, junior PhDs,
and members of groups underrepresented in mathematics is
particularly encouraged. For more information see the conference
web site, http://conferences.braude.ac.il/math2009/.